LSAMP- Washington Baltimore Hampton Roads Alliance

Program Summary

Over the past three years of Phase II of the Washington-Baltimore-Hampton Roads
Louis Stokes Alliance for Minority Participation (WBHR-LSAMP), three new state-based
institutions were added. The original four partners for Phase I included Howard University (HU),
Hampton University (HAU), Morgan State University (MSU) and the University of the District of
Columbia (UDC). The new Phase II partners included Bowie State University (BSU), Norfolk
State University (NSU) and Virginia State University (VSU). The addition of these three partners
expanded the diversity of student populations served by the WBHR-LSAMP programs as well as
expanding the numbers of programs available to students enrolled in science, technology,
engineering and mathematics (STEM) within the Alliance.
Intellectual and Technical Merit
The principal objective for Phase III of the WBHR-LSAMP Alliance is to continue to
institutionalize the . best practices. and . lesson-learned. from Phases I and II of the Alliance
and to build the necessary instructional and research infrastructure that will ensure the successful
progression and transition of undergraduate students towards B.S., M.S and Ph.D. degrees in
STEM fields. The specific objectives for Phase III are to:
Provide direct support for junior and senior-level students in order that they can
successfully transition into graduate programs in STEM fields and ultimately replace the
graying. professoriate in major research universities and the scientists and engineers at
national and industrial laboratories.

To develop seamless relationships and partnerships with major research universities so
that students within the WBHR-LSAMP programs completing B.S. and M.S. degree
programs can continue their graduate work with joint mentoring by professors at WBHR-
LSAMP institutions and those offering Ph.Ds by .building bridges for the doctorates..

To build synergistic research efforts for all STEM students so that institutionalization of
the WBHR-LSAMP initiatives will become permanent mechanisms for degree
production at all levels in the postsecondary educational pipeline.

Broader Impact
Based on the trendline data, more than 7,500 African Americans have received B.S.
degrees in STEM fields from this WBHR-LSAMP Alliance over the past 10 years and
approximately 30 percent or 2,200 of these students have gone on to enroll in graduate degree
programs and have received M.S. and Ph.D. degrees as well as other professional degrees. The
WBHR-LSAMP has documented evidence that the LSAMP students are more likely to return to
HBCUs than other students. It is also clear by the number of Ph.Ds produced within the WBHR-
LSAMP institutions, as well as the number of new assistant professors who have been hired
within the WBHR-LSAMP Alliance, that the impact of the WBHR-LSAMP Alliance is not just
within the alliance, but the impact is national as well as global. We believe that that quality of
African American students attending institutions within the WBHR-LSAMP alliance is among
the highest in the United States. Furthermore, the establishment of new research partnerships will
have as its foundation the establishments of doctoral.level research at WBHR-LSAMP
institutions. The combination of improved instructional and research facilities at WBHR-LSAMP
Institutions will have synergistic affects and benefits for all of the WBHR-LSAMP institutions,
as well as the major research institutions that become research partners. In particular, students
participating in collaborative research benefit because they can be actively involved in a
comprehensive approach to research and development that is typically difficult to achieve in
smaller focused research groups such as those normally found in HBCUs and MIs where research
resources are usually limited.